Business Elites and Political Realignment

The dramatic public policy shifts of the 1980's occurred despite the lack of a corresponding change in partisanship and political attitudes in the mass public. This research is designed to test whether one key to resolving this paradox is the attitudes and behaviors of business elites. Through the use of network analyses of corporate Political Action Committee contributions from 1976 to 1988, the study will examine whether the degree and nature of support for conservative candidates changed in the 1980's. In addition, a survey of corporate executives will be used to examine how (if at all) corporations coordinate their PAC strategies and the extent to which they self-consciously pursue similar strategies.